Confocal Microscopy System for Physiological and Endocrinological Studies

This award supports purchase of a confocal microscopy system, including camera and computer for research and teaching in cellular and molecular biology, endocrinology, reproductive physiology, digestive physiology, animal embryology and nutrition. This system will permit high-magnification, high-resolution studies employing bright field, differential interference contrast (DIC) and epifluorescence microscopy. The state-of-the-art confocal system and infinity optics in this microscope will enhance quantitative immunofluorescence studies. The three investigators who will share the microscope have research programs focused on the role of vascular development (angiogenesis) in tissue growth, development and regression; hormonal control of growth, development and metabolism; and cellular interactions within organs and tissues. Other researchers from the Cell Biology Center and the Departments of Animal and Range Sciences, Biological Sciences, and Veterinary and Microbiological Sciences, as well as their students, are also expected to use the system.